Exploratory Visit

0225329
Fan

The Executive Vice-President of Northwest Science and Technology University of Agriculture and Forestry (NSTUAF), Dr. Jing Li, has sent his personal invitations to a group of American scientists to participate in a meeting of planning a scientific cooperation and opening a Sino-US Center for Soil and Water Conservation and Environmental Protection in Yangling on May 20, 2002. Dr, Shou-Shan Fan, a Facilitator of the American delegation and Adjunct Research Professor of Clarkson University helped China establish the new Center. In addition, Dr. Fan has been invited to visit the Chinese Academy of Science in Shanghai on May 15-17, to participate in a study tour of wind-erosion problems in Ningxia and Gansu Provinces on May 21-26 and to attend an International Conference on Soil Erosion to be held on May 27-31 in Beijing. The invitations received by Dr. Fan are herewith attached

This proposal requests travel support for Dr. Fan.